MGR Honorable Mention: Rhoda M. Ascanio

This special award will give Ph.D. student Rhoda Ascanio additional flexibility in pursuing her graduate studies and research initiation in Population Biology/Community Ecology. This award will strengthen minority research participation in this area.//